SBIR Phase I: High Energy Density Nanodielectrics for Commercial Pulse Power Applications

This Small Business Innovation Research Phase I project will develop a new category of high energy density nanocomposite dielectric materials for use in high pulse power capacitors. The approach is to bring together 3 nanostructures in a polypropylene matrix to form a novel nanocomposite material with high effective dielectric constant, high breakdown voltage, and low dissipation factor.

These high-performance nanocomposite dielectric materials may be used in many commercial high-power pulse, fast pulse, and high-energy density capacitors, resulting in reduced size, reduced weight, and improved circuit design. The commercial opportunities include high density electronic devices and packaging for medical, communication, transportation, and power distribution systems, in products such as defibrillators, medical and commercial lasers, pulse forming networks, A.C. motors, ultrasonic transducer exciter, strobe lighting, and acceleration and energy recovery systems of automobiles.